The Systematic Study of Senate Elections

By comparison to our knowledge of U.S. House elections, our understanding of Senate elections and the institution itself remains impoverished. We know rather little about how voters choose their Senators, how Senators represent the interests of their constituents, and the kinds of campaigns that Senators and their opponents wage. The problem is not that Senate elections are of little theoretical interest: the study of elections provides an excellent and in some respects optimal entree to fundamental questions for American democratic politics. Nor is it a case of indifference on the part of the research community: there is in fact a considerable and growing interest in the study of Senate elections. The problem, rather, is the absence of appropriate data: our comparative ignorance reflects the drastic limitations of the evidence now available. This project involves a study of Senate elections to repair this defect, justified by the substantive and theoretical advances that the study will make possible. Advances will come in concentrated form on four topics, each fundamental to understanding the contemporary American political system: (1) political representation, of interest not least because, contrary to the intentions of the framers of the Constitution, the contemporary Senate appears to be more responsive to popular sentiment than the House; (2) the "simple act of voting," Senate elections provide a comparative context for elaborating and testing theories of voter choice that is useful in and of itself but that also throws light on voter choice in other settings; (3) divided government, now the norm in the American system of separated powers, one that appears to menace coherent legislation and erode political accountability; and (4) the nature and consequences of political campaigns, Senate elections provide an opportunity to examine the interplay among candidates, the political institutions governing elections, and voters in a particularly powerful way, one that is simply unavailable in other electoral arenas. With support from the National Science Foundation, the Principal Investigator and National Election Studies Board, initiated in 1988 the first phase of a three-part study of Senate elections. The present study involves a data collection of the 1990 Senate elections through telephone interviews with a national sample of 3,750 members of the eligible electorate. The average length of the interviews is 35 minutes and will involve a randomly selected set of respondents, divided among all 50 states, interviewed in the period immediately following the November general elections. Initial analyses of the 1988 Senate elections suggest that the study to be conducted here will have the same kind of explosive impact for research on Senate elections that the 1978 National Election Study has had on our understanding of the House.